Separating Tidal and Residual Currents in Ship-Mounted ADCP Data from the Amazon and Northern California Shelves

In this project the P.I.'s will continue development of a spatial interpolation technique using arbitrary functions for separating tidal currents from lower-frequency currents in shipboard Acoustic Doppler Current Profiler (ADCP) data. The techniques will be further tested by applying them to data sets obtained in the region of the Amazon River outflow during the AMAzon Suspended SEDiment Study (AMASSEDS) and in the region of the California Current during the Shelf MIxed Layer Experiment (SMILE).